A New Class of Stabilized Methods for Multiscale Problems in Computational Solid Mechanics

A New Class of Stabilized Methods for Multiscale

Problems in Computational Solid Mechanics

Many problems in mechanics of materials involve operation of multiple spatial and temporal scales. The issue of scales gets compounded in micro-electro-mechanical systems (MEMS). A general trend in engineering practice toward miniaturization of mechanical and electronic components in MEMS highlights the need for computational techniques that can successfully address this issue. The research being proposed here is aimed at developing a new class of multiple scale methods for the modeling and analysis of coupled electro-magnetic fields in semiconductor materials. Educational activities in this program include the development of curriculum on micro-mechanical issues in MEMS and a new course on multi-scale finite element method.